EU-US Workshop on Domestic Impact of Information and Communication Technology

This proposal for a joint EU-US workshop will bring together the active researchers from the US and European Union who are investigating information and communication technologies in the home. This workshop is important as scientists in a number of countries are studying technology in the home, but because of publication lag times are not aware of each other's results. This workshop will serve as a forum to address the role of technology in 1) household behavior, including socialization, time use, and gender differences, 2) social interaction, including the impact of the Internet on social capital and quality of relationships, 3) employment and new forms of work, and 4) country differences in the use and impact of technology in the home. One important output will be an academic book documenting the current state of the theoretical and empirical research.